Real-Time Animal Telemetry

A grant has been awarded to Dr. Paul A. Garris at Illinois State University
to develop a new instrument for wireless monitoring of neural activity in
the brain of awake, unrestrained animals. The new instrument, called
real-time animal telemetry (RAT), will combine two powerful technologies;
microsensors for spatially and temporally resolved measurements, and digital
telemetry for remote data transmission and system control with high speed
and high fidelity. The primary advantage of RAT will be sub-second
characterization of brain function with minimal perturbation of behavior.
The proposed RAT instrument holds great promise for advancing the study
of brain-behavior relationships.

RAT will be a modular and multifunctional instrument, a design that advances
development and affords flexibility to its application. Several types of
measurement techniques will be incorporated into RAT: Voltammetry which
monitors the chemistry of the brain and electrophysiology which
measures brain bioelectrical activity. Combined, the techniques assess the
release of a neurotransmitter and its postsynaptic effect to obtain a more
integrative view of brain function. Although great strides have recently been made
applying real-time voltammetry and electrophysiology to awake animals,
the connection between sensor and recording equipment is made by a cable tether. Unfortunately, the hard connection affects behavior and hinders or even prevents
investigation of important paradigms such as those involving social interactions
and complex environments. To overcome this problem, the new instrument will
use a wireless link. Moreover, because real-time voltammetric and electrophysiological measurements are very susceptible to transmission artifacts, RAT will use high fidelity digital telemetry.

Ultimately, RAT should be commercially viable instrumentation in the support of
biological research. The incorporation of well-established techniques will
make the proposed RAT instrument attractive to large number of users working
in the neuroscience fields. With further development, there is enormous
potential for RAT to support other existing real-time microsensors. RAT can
also evolve to accommodate sensor technologies that emerge in the future.